Phase Separation Mechanisms in Branching Conduits

The understanding of phase separation phenomena in branching conduits is of great practical importance in the chemical process, petroleum, and nuclear power industries. No reliable phase separation models or correlations exist with which phaseseparation can be predicted in a branching conduit of untested configuration and/or operating conditions. Moreover, the existing data base is insufficient to support the development of mechanistic models or reliable correlations. Phase separation data in relatively large diameter tees and data in wyes and tees for so-called impacting flows will be obtained. These data are badly needed for the development of physically-based phase separation models.